Paleomagnetism Applied to the Paleozoic Tectonics of China

Paleozoic positions and orientations of the cratonic blocks and terranes that constitute present-day Asia are not well known, but this information is required from both paleogeographic and global geophysical stand points. This project will utilize recently-discovered Ordovician and Silurian strata from the western margin of the North China Block to determine paleomagnetic pole positions for these terranes. Results will help unravel the tectonic history of China and provide a paleomagnetic reference frame for determining relative displacements and times of accretion of blocks and terranes both within and outside China.